Research Experiences for Undergraduates at SUNY - Stony Brook

Dr. Joseph W. Lauher and other members of the Chemistry Department of SUNY-Stony Brook are being supported to continue a Research Experiences for Undergraduates (REU) site in Chemistry. For the period 1993-5, ten undergraduate students will spend ten weeks each summer actively engaged in a variety of research projects. Projects cover the traditional areas of chemistry-analytical, inorganic, organic, physical and biochemistry. A unique feature of this program is the focus on students from colleges and universities with large minority populations including historically Black Colleges.